REU Sites: Experimental Computer Systems Research at Binghamton University

Binghamton University in general, and its Computer Science (CS) Department
in particular, are successfully complementing an outstanding reputation
for undergraduate education with vibrant and growing graduate-level
research programs. This combination provides fertile ground for
outstanding undergraduate research experiences in the area of experimental
computer systems. The combination of a high quality research environment,
dedicated and talented Faculty Research Mentors, and a feedback loop driven
by a local educational evaluation professional, ensure the strong
intellectual merit of this REU site. An attractive high-quality Web space,
papers published in high-profile venues, and faculty talks describing
student research, will demonstrate that undergraduates can be valuable and
effective researchers, thereby encouraging other CS departments to
increasingly employ them in this capacity.

Current research projects directed by Binghamton CS faculty include improving
the performance, energy-efficiency, and reliability of modern microprocessors
and memory systems; using Grid computing to solve computationally complex
distributed scientific applications; combining and scaling wide-area Web-based
information retrieval techniques; advancing face recognition, processing,
analysis, and animation research; and creating new combinatorial optimization
techniques for VLSI computer aided design problems. Specific goals of the
Binghamton REU Site include exposing students to high-quality computer systems
research, training them to be effective and productive computer science
researchers, and attracting them through exciting and positive experiences
to continue to pursue a research-oriented career path.